The Terminal Enzymes of Heme Synthesis in Plants

Heme is a cofactor, present in many compartments of the plant call. While the plastid contains all of the enzymes requried for its own heme synthesis, the role of other compartments, such as the mitochondrion and cytoplasm, in heme synthesis is unknown. In this project we will determine the location of four heme-synthetic enzymes (uroporphyrinogen decarboxylase, coproporphyrinogen oxidase, protoporphyrinogen oxidase and ferrochelatase) within the cell and within the organelle. Enzyme activities will be measured in chloroplasts, mitochondria, and cytoplasmic fractions that have been carefully isolated and assayed for integrity and contamination. We will further explore the possibility that intact plastids have the capacity to export porphyrinogens for mitochondrial heme synthesis. Recent findings suggest that plants treated with protoporphyrinogen oxidase inhibitors accumulate extraplastidic protoporphyrinogen. Experiments to discover if any of the enzymes which convert 5-aminolevulinic acid to protoporphyrinogen form a multienzyme complex within the plastid are planned. Substrate channeling between protoporphyrinogen oxidase and ferrochelatase will also be examined. Two of the heme and chlorophyll synthetic enzymes that have not been well studied previously (coproporphyrinogen oxidase and ferrochelatase) will be purified. The purified proteins will be used to raise antibodies in rabbits for use in studies on complex formation and localization of these enzymes.